Behavioral and Population Ecology of Coral Reef Fishes

This project involves the Caribbean bluehead wrasse, Thalassoma bifasciatum. It has two major objectives: Through experimental manipulation, it will investigate the causal relationship between natural selection and male features that prior correlation studies have suggested to be important. Other investigations have assumed that particular features convey fitness, but have not established the causal connection through experimentation. The experiments in this section represent the first comprehensive field investigation into the direct fitness consequences to females for expressing a mating preference. Through a series of successive removals and replacements of males on a reef, females will be repeatedly challenged to make choices among males who are highly variable in a feature shown to be important in mate choice. From this, one can estimate consistency and variability of mate choice among females, the consequences of expressing a choice in terms of fecundity, fertilization rate, and growth, and also identify the source of the benefit (male or female). The results have important applications in sorting through alternative explanations for the evolution of mating preferences.